SHF:Small:Boosting Sustainability in NoC Architectures Through a Proactive Approach

Rapid technology scaling has fueled an unprecedented growth in the semiconductor
industry, transforming the face of modern society. Commodity systems have
undergone a sea change from the uniprocessor era of past decades to the current
many-core era. With numerous on-chip processing cores, the communication fabric
in many-core systems becomes a critical design component. Network-on-Chip (NoC)
architectures are widely regarded as the most promising design for the
communication platform for many-core systems, primarily due to their
scalability. Many-core systems such as Intel 80-core and Tilera have already
used NoCs as the backbone of communication between their on-chip processors. To
maintain fault-free execution in these many-core systems, it is imperative to
ensure sustained lifetime in both NoCs and processing cores. This research
embarks on boosting sustainability in NoC architectures through a proactive
design paradigm.

Using a cross-layer collaborative venture, spanning from the device layer to the
architecture layer, this project establishes a transformative framework to
design sustainable NoC architectures. Existing techniques for NoCs tackle the
sustainability design challenge in a reactive way by triggering corrective
mechanisms after a component failure. The investigators explore an orthogonal
proactive strategy, recognizing the need for device level aging awareness during
the entire life span of an NoC. This project demonstrates that sustainability
can be improved in NoCs without sacrificing power-performance, by considering
the criticality of packet transmission. By playing a central role to facilitate
long term sustainability in NoCs, this research can substantially improve the
cost efficiency in building large data centers supporting our modern compute
intensive society. Major research insights will be disseminated through teaching
to develop relevant skill sets, lead to more sustainable future computer
systems, and benefit the community at large.